Development of Laboratory Courses in Molecular and Cellular Biology

Two new laboratory courses will be developed, one in molecular/cellular genetics, and one in microbiology/immunology/cell biology. These courses are designed to create a lab experience that simulates a research environment for these students who are not yet fully prepared to engage in actual research. The courses will introduce students to a variety of experimental systems, including plant and animal cell and tissue culture. Various experimental approaches will be considered, but the primary focus will be on cell biology (culture, fusion, transformation), immunology, recombinant DNA technology, and the analysis of regulation of gene expression. An incubator and safety cabinet are needed for the tissue culture experiments, while radioisotope counters, centrifuges, and balance will allow students to do all of their own analytical and most of their own reparative work, in keeping with the goal of creating a research lab environment. Computers will allow students to work with simulation programs, record and plot data, and carry out statistical analyses directly in the lab. Students will report their work in research-style lab conferences. The college will provide 50% matching funds.